EPSCoR Research Fellows: NSF: Enhancing Astronomical Multi-Messenger Inference of the Neutron Star Equation of State through Machine Learning Methods

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of Nevada, Las Vegas (UNLV). This work is conducted in collaboration with the University of Illinois Urbana-Champaign and the NSF-Simons Artificial Intelligence (AI) Institute for the Sky (SkAI Institute). Through the fellowship, the PI will develop a machine-learning based method to explore the most physics-rich description of the most extreme form of matter in the Universe, found inside Neutron Stars. This will remove the computational roadblock currently making such studies infeasible, allow us to better understand some of the most violent astronomical processes in existence, and provide training and exploration in cutting-edge machine-learning methods for both the PI and the graduate student.

In this project, the PI and a graduate student will develop a bi-directional emulator able to describe the connection between the parameters defining the MUSES (Modular Unified Solver of the Equation of State (EoS)) for neutron star matter and the astrophysical observables this EoS provides. This emulator will allow for robust studies of the MUSES EoS itself, how model uncertainties in both the MUSES EoS and astronomical observational constraints translate into each other and how model correlations emerge and evolve. Without this emulator, such studies will be computationally infeasible and will thus significantly limit our understanding of matter under its most extreme conditions.

The project will make use of modern high-performance computational resources through the SkAI Institute, provide training for the PI and graduate student from machine-learning experts at the SkAI Institute, enable further collaboration between UNLV and SkAI Institute scientists and align with UNLV’s goal to leverage advanced AI technologies to enhance education, research, and campus operations.
This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows (ERF). The ERF program supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.